Physical Properties of Outflowing Gas in Broad Absorption Line Quasars

Broad absorption line quasars (BALQs) exhibit powerful outflows that may play a key role in regulating the growth of supermassive black holes and their host galaxies. Building on prior NSF-supported work, the team developed SimBAL, an advanced spectral analysis tool that combines photoionization modeling with Bayesian methods to derive the physical properties of these complex outflows. Using SimBAL, the collaboration has completed detailed analyses of more than 100 low-ionization BALQs, revealing that outflow properties vary widely and are closely linked to black hole accretion rates. The resulting measurements will provide the largest statistical characterization of quasar outflows to date, improve methods for interpreting BAL spectra, and strengthen our understanding of quasar wind acceleration, feedback, and the evolution of galaxies and supermassive black holes. This project will also train the next generation of scientists in this active area of research. This project will offer a summer short course on data analytics for students at the University of Oklahoma, REU participants, and other undergraduate researchers. The course will provide students with essential skills in cloud computing, data visualization, computational and statistical thinking, and model fitting.

This project will extend detailed analysis to quasars with high-ionization broad absorption lines. These objects, characterized by absorption from resonance lines such as C IV, make up between 15 and 40% of quasars and represent outflows from luminous quasars. This project will also support BALQ science in the 4MOST-Gaia Purely Astrometric Spectroscopic Survey. Conducted on the VISTA telescope at ESO’s Paranal Observatory, this survey will obtain spectra of 100,000 quasars and has a uniquely simple and well-defined selection. SimBAL analysis will yield the BALQ outflow properties, from which the team will make the first measurement of outflow global covering fraction as a function of black hole mass and accretion rate. This work, combined with previous studies of iron low-ionization BALQs, emphasizes construction of foundational knowledge of broad absorption line quasars.